Almost Periodic Differential Equations and Lattice Dynamical Systems

9704245 Shen Research is proposed in two areas: almost periodic differential equations and lattice dynamical systems. Recently, the principal investigator and a collaborator systematically investigated the dynamics of various types of almost periodic differential equations. Fundamental dynamical issues such as the existence of almost periodic and almost automorphic solutions, asymptotic behavior of bounded solutions, the structure of omega limit sets, etc. have received a considerable amount of attention. The principal investigator and her collaborators also studied the global dynamics of some almost periodic differential equations arising from biology and physics by utilizing both the general approach and theory established in the principal investigator's joint works with Yi. The principal investigator plans to continue her research in almost periodic differential equations. In particular, she intends to explore the global dynamics of various almost periodic population models such as migration-selection models and multiple species competition models; to study almost periodically forced oscillators such as van der Pol oscillators and Josephson junctions; to consider spatially almost periodic parabolic equations; to find conditions on the existence of almost periodic dynamics; and to investigate almost automorphic dynamics in general differential equations. In her recent work and also in joint works with her collaborators, she studied the stability of standing and traveling waves and the existence of chaotic dynamics in lattice dynamical systems. Among the results, an existence criterion for chaotic dynamics in coupled map lattices is found; a moving coordinate approach, which is different from but analogous to the traditional moving coordinate approach in partial differential equations, is introduced to deal with traveling waves; and various dynamics such as spatial chaos, propagation failure, traveling waves, etc., are shown to exist in a discrete Nagumo equation. The above works provide some insight into the complex behavior of lattice dynamical systems. Continuing her commitments in lattice dynamical systemq, she would like to study the following problems in the near future: other possible routes such as bifurcations to chaotic dynamics; existence and stability of traveling waves and the appearance of synchronization. Moreover, she intends to continue the analysis of the dynamics in the discrete Nagumo equation; and to explore the dynamics in lattice population models. Both almost periodic differential equations and lattice dynamical systems are widely used as models for many physical and biological problems. For example, in the population dynamics of a single species, the dynamics of the species is described by an almost periodic reaction diffusion equation if a continuous environment is inhabited, seasonal variation is accounted for (note that seasonal variation may not be exactly periodic but rather almost periodic) and there is another inherent periodic variation. If the species inhabits a patchy environment, then its dynamics are described by a lattice ordinary differential equation. Furthermore, if each individual of the species migrates from patch to patch in a discrete time manner, then the dynamics are characterized by a coupled map lattice. Numerous other examples are found in electric circuits, climate dynamics, image processing and pattern recognition, material sciences, etc. It is therefore of great importance to study almost periodic differential equations and lattice dynamical systems. Though much research has been done, many scenarios appearing in both areas are far from being well understood. The principal investigator proposes to do research in these two areas. In particular, based on her previous experience, she plans to study various models arising from physics and biology such as competition models, almost periodically fo rced oscillators, etc. The proposed research is intended to be a mathematical contribution to the qualitative and quantitative theory of almost periodic differential equations and lattice dynamical systems, resulting in a better understanding of complex behavior in these systems.